Free Surface Fluid Mechanics and Electromagnetic Scattering: Stable, High-Order Perturbation Techniques

Abstract 0406007, Nicholls, University of Notre Dame

Free Surface Fluid Mechanics and Electromagnetic Scattering: Stable, High-Order Perturbation Techniques

The Principal Investigator (PI) proposes the investigation of
fundamental phenomena in free-surface ideal fluid flows, and
electromagnetic and acoustic scattering. Among the applications are
the efficient, stable, high-order computation of traveling
three-dimensional, capillary-gravity water waves, and a numerical
investigation of their dynamic stability. Another problem the PI will
address is the imposition of "non-reflecting" boundary conditions for
differential equations posed on unbounded domains, particularly in the
setting of electromagnetic and acoustic scattering. The PI also
proposes a synthesis of two major areas of his research through the
study of backscattering returns of electromagnetic radiation from
traveling ocean waves. A unifying element in this project, and the
principal numerical tool the PI will employ, is a class of boundary
perturbation methods first introduced by O. Bruno & F. Reitich in the
context of numerical simulation of acoustic and electromagnetic
scattering problems. These methods have subsequently been
significantly refined and stabilized by Reitich and the PI for the BVP
of computing Dirichlet-Neumann operators, and approximating scattering
configurations. Among these refinements, the PI & Reitich developed
the method of "Transformed Field Expansions" (TFE) which enables the
reliable, high-order, stable perturbative computation of BVP and FBP.
While this method is extremely successful in resolving simulations
well outside the reach of competing methods, it is somewhat
disadvantaged in terms of computational complexity in comparison to
other techniques (e.g. boundary integrals/elements). A final project
that the PI proposes is the investigation of two refinements of this
TFE approach to increase its efficiency.

Fixed and free boundary problems arise in all areas of engineering and
the sciences. Two particular instances of relevance in this proposal
are the classic free boundary problem of the motion of surface waves
on a large body of water (e.g. a lake, sea, or ocean), and the fixed
boundary problem of scattering of electromagnetic or acoustic waves
from an irregular surface. The accurate and reliable simulation of
surface waves is used not only to model the capabilities of open-ocean
structures (e.g. oil platforms), but also in the study of transport of
pollutants and other substances of environmental interest across
lakes, seas, and oceans. Applications of electromagnetic and acoustic
scattering come in problems of radar, imaging, and sensing to name
just a few. Many numerical techniques are available for the
simulation of these problems and one of the goals of this proposal is
the utilization and improvement of a class of techniques discovered
and refined by the Principal Investigator (PI) and collaborators. In
particular, when the problems mentioned above are simulated in full
three dimensions, the computations become quite intensive and the
issues truly become those of high-performance computing.